Evaluation and Renewal of Unreinforced Brick Masonry Buildings

9410091 Kingsley This travel grant will enable the principal investigator to participate in an evaluation of the structural performance of a masonry building subjected to lateral forces for a period of three months. The building is in Pavia, Italy, and the experiment is under the sponsorship of the University of Pavia. ***